Computer-Aided Radio Telemetry Equipment for Undergraduate Studies in Animal Behavior and Ecology.

Laboratory experiences are being introduced to illustrate and test theories of animal behavior and ecology that are presented in the lectures of five existing courses. The computer-aided radio telemetry equipment also is providing advanced undergraduate research opportunities in the disciplines of ethology and ecology, providing undergraduate access, experience, and familiarity with the equipment. The animal behavior and ecology topics that are being developed for incorporation into the Department's laboratory course work and undergraduate research include home range, territoriality, habitat preferences and partitioning, cyclic activity patterns (circadian and seasonal), dispersal patterns, refugia selection, social organization, and the effects of age, season, and sex on any or all of the above.